PRF/J: Chloroplast and Nuclear Sequence Phylogenetics of the Palmae

Despite intensive study of morphological, anatomical and molecular data sets, phylogenetic relationships within the Palmae and the family position within the monocots remain unresolved, a situation common in taxa with deep phylogenetic branches. Solutions to such problems include generation of additional data sets, greater taxon sampling density, comprehensive review of the fossil record,and critical analysis of the various data sets individually and in combination. For this purpose, regions of DNA exhibiting levels of divergence appropriate for phylogenetic resolution at the familial, subfamilial and sectional levels will be sought. Sequences from both nuclear and chloroplast genomes will be produced for representative members of the family and proposed outgroup taxa. Analysis of data is to be conducted independently but also coupled with different data sets. Phylogenetic reconstruction will use parsimony analysis, and employ consensus and combinational approaches. Specific evolutionary issues to be addressed include resolution of phylogenetic position both within the family and with respect to the monocots, study of character evolution within a phylogenetic framework, comparative molecular evolution within and across genomes, and examination of broad biogeographic patterns exhibited by the family. %%% Because an extensive fossil record exists, and the family is generally well characterized, restricted to the tropics/subtropics, and has low dispersal abilities, the palms provide an excellent group for conducting the work described above. This study will address controversial problems involving data analysis in systematics. The issue is "What is the most appropriate method of analysis." Difficulties relate to: (a) relative importance of one data set compared to another and (b) questions of gene versus genome versus organismal phylogenies. Debate over analytical strategies revolves around methods of consensus or combination. The dynamic nature of this field indicating that additional comparisons and applications of potential solutions are needed.